Towards a Complete Theory of Exact Relations

Sage
DMS-0606300

Typically, physical properties of composite materials are
strongly dependent on microstructure. However, in exceptional
situations, exact relations exist that are
microstructure-independent. These express fundamental
invariances in a given physical setting. Exact relations have
been extensively studied, but the classical approach has been
heavily dependent on the physical context. In the late 1990's,
an abstract theory of exact relations was originated by Grabovsky
and greatly extended by Grabovsky, Milton, and the investigator.
It has proved to be enormously powerful. Indeed, by reducing the
search for exact relations to a purely algebraic problem
involving group representation theory, it has led to complete
lists of all rotationally invariant exact relations for
three-dimensional thermopiezoelectric composites, which include
all exact relations for elasticity, thermoelasticity, and
piezoelectricity as special cases. This new approach has been
responsible for a great leap forward in this area of material
science. However, the theory is by no means complete. The
purpose of this project is to complete the theory of exact
relations by addressing the three remaining major open questions.
First, previous work has given complete lists of exact relations
only in relatively simple physical contexts. The investigator
studies highly coupled problems with the ultimate goal of finding
an explicit parameterization of exact relations for the physical
problem with any number of temperature, electric, and elastic
fields. The second project is the exploration of the
relationship between lamination and homogenization for exact
relations. The basic question is whether there exist exact
relations that are stable under lamination, but not under
homogenization. Third, the investigator undertakes a detailed
study of the algebraic structures associated with exact
relations. In particular, questions about exact relations may be
reformulated in terms of algebraic objects called Jordan
algebras. This approach seems very promising, and it is
considered to be crucial for progress on the two problems
described previously.

Composite materials are everywhere in the modern world.
They are used in the manufacture of products ranging from skis to
airplanes and from tennis rackets to cell phones. It is
accordingly of great technological importance to understand how
physical properties (such as conductivity and elasticity) of a
composite are related to the properties of its constituents.
This is difficult in general because the way in which the
constituents are put together strongly influences the end result.
For example, take two materials, one soft and one hard. If the
hard material is embedded in the soft substance, the composite
will be compressible. On the other hand, if the soft material
lies in a matrix of the hard material, the composite will be
rigid. However, in certain situations, this typical variability
is greatly reduced. The goal of this project is to understand
and classify these situations. From a practical point of view,
the project establishes "impossibility theorems" in engineering,
i.e. results showing that a composite with desired properties
cannot be constructed from a given set of starting materials.
The proposal thus has significant implications for industrial
research and development.